Postdoctoral Fellowship: MSPRF: Geometry of Fronts and Interfaces in Statistical Mechanics

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Yujin Kim is “Geometry of Fronts and Interfaces in Statistical Mechanics”. The host institution for the fellowship is the California Institute of Technology and the sponsoring scientist is Thomas Hutchcroft.